Research Careers for Minority Scholars

South Carolina State College proposes to provide talented, undergraduate, ethnic minority and female students with a program of academic enriched and comprehensive research activities. These activities will be integrated in a manner to significantly enhance the participating students chance of remaining in the Science, Engineering and Mathematics (SEM) pipeline and pursuing careers associated with the disciplines of Biology, Chemistry, Physics, Computer Science and Mathematics. Our RCMS Program will develop and implement the following components: 1. A faculty Preceptor Seminar and Faculty Mentor Program to provide students with structured group learning and skills development activities, and early academic stimulation to pursue graduate study. 2. A Summer Research Program that will provide intramural and extramural research experiences. 3. A program of Special Seminars and Colloquia. 4. A Secondary School Outreach Program in which selected science education students and college faculty will provide instructional support and assistance for middle school/high school classroom teachers. 5. Skills Enhancement Exercises that are designed for GRE preparation will be presented in four phases during four years of student participation in the RCMS program.